Planning: Collection and Exploratory Analysis of Suspicious Contact Reports (SCRs) to Enhance Research Security

American research excellence depends on openness and international collaboration, however that same openness may create opportunities for those seeking unauthorized access to sensitive technologies and expertise. When a researcher encounters an unusual contact, such as an unexpected request for unpublished data or an unsolicited offer of funding, they are instructed to document the incident in a suspicious contact report (SCR) held by that researcher’s institution. Because each university sees only its own reports, institutions do not distinguish an isolated contact from one that is part of a concerning pattern. This project would develop a framework for sharing SCRs across institutions. This planning project builds the partnerships, governance, and infrastructure that would allow universities to pool and study these reports securely, with identifying information removed. The work strengthens the capacity of the academic community to protect federally funded research while sustaining the principled international collaboration on which discovery depends. Students and early career researchers involved in this project will gain experience spanning data science, security, and policy.

This project addresses three questions: whether structured information can be extracted reliably and automatically from reports that arrive as narrative text in inconsistent formats; whether reports pooled across institutions reveal patterns invisible within any single institution; and whether sharing of such sensitive material can be governed securely and ethically at scale. Participating universities will contribute a corpus of recent Suspicious Contact Reports (SCRs) under negotiated data use agreements, with access controlled through federated authentication. An existing secure research data exchange platform will be extended to ingest and process the SCRs. Extraction proceeds in three stages: candidate passages are located by comparing vector representations of the text against descriptions of the target fields; a large language model extracts each field; and an automated consistency check assigns a confidence score used to filter unreliable output, validated against blind expert ratings. Because the resulting records are noisy, and because a report reflects suspicion rather than established fact, they will be analyzed as marked point process data, allowing weak signals to be weighed against broader patterns rather than read in isolation. Deliverables include governance and data sharing protocols, a documented extraction pipeline, a cross-institutional analysis, a curated dataset for approved collaborators, and peer-reviewed publication.